Conference on Central and Peripheral Significance of Neuropeptide Y; April 2-4, 1990; Baltimore, MD

Travel support is provided to scientists to attend an international conference on the central and peripheral significance of neuropeptide Y. Neuropeptide Y, identified in 1982, is the most abundant peptide isolated within the central nervous system. Within the brain and also the peripheral autonomic nervous system, this peptide co-exists with several neurotransmitters and possesses neuromodulatory activity. Neuropeptide Y is thought to be involved in the control of autonomic function, endocrine regulation, regulatory behaviors and learning and memory. This conference brings together scientists from diverse disciplines including neuroanatomy, physiology, molecular biology, behavior and peptide chemistry with the intent of disseminating knowledge among this group who normally would not meet together. By exchanging information, it is hoped that new directions for research will develop leading to a better understanding of the role of neuropeptide Y in the normal functioning of the brain and the heart. Moreover, this line of research may prove invaluable in the management of a number of common disease states where neuropeptide Y has been implicated to have a role such as hypertension, coronary vasospasm, obesity and stress-related affective disorders or precipitating presenile dementias.